RUI: Study of Intercalated Low Dimensional Solids by X-ray Absorption Electron Spin Resonance and Nuclear Magnetic Resonance Spectroscopy

This renewal RUI proposal is aimed at investigating the effects that composition (as varied by intercalation) has on the properties of low dimensional solids. New materials with special properties will be prepared and characterized.